Low Temperature Electronic Properties of Conducting Solids

This project is directed at the properties of weak coupling effects in superconductors, with emphasis on glassy superconductive behavior, vortex pinning, and chaos. Two categories of experiments are planned. The first involves measurements of the dynamical properties of superconducting arrays of Josephson and proximity effect junctions. In this context, superconducting arrays are model systems that display many of the features of granular superconducting films, with the advantage of accurate characterization at the microscopic level. The other category of experiments involves measurements of vortex and flux pinning effects in two-dimensional In/InOx films and three-dimensional samples of high Tc superconductors.